An Immunochemical Probe for a Dinoflagellate Light Harvest -ing Protein: A Tool for Single Cell Analyses of Phytoplank-ton Population Dynamics

This study concerns a novel application of immunochemistry to oceanography. The surface layers of the ocean are inhabited by vast numbers of organisms, most of which are too small to be seen with the naked eye. Characterizing the organisms present therefore, requires time consuming microscopic work on sea water samples. This work will develop a method borrowed from biotechnology to enable oceanographers to rapidly screen samples for the presence of plant cells called dinoflagellates that are common in coastal U.S. waters. The technique involves the production of antibodies that react only with a specific type of chemical, in this case, chemicals that are characteristic of certain marine plant cells. A rapid and reliable technique to identify dinoflagellates may be a valuable propholactic against the toxic effects of these plant cells to coastal shell fisheries.